SBIR Phase II: System for Location-Based Mobile Consumer Analytics

This Small Business Innovation Research Phase II project aims to improve data mining technologies for location analytics. This project will focus on the analysis of semi-continuous GPS and/or WiFi-based location data generated by consumer mobile devices. The anticipated improvements would allow consumer insights professionals and advertising effectiveness researchers to better detect emergent patterns and to draw stronger inferences about consumer behaviors, preferences, and lifestyle attributes. The enhanced data mining system would utilize state-of-the-art pattern recognition and machine learning techniques to dynamically process and interpret location and other types of data. If successful, this research will impact the state-of-the-art in location analytics.

This research has the potential to meet the need of consumer insights professionals to better understand how consumers behave, without the use of lengthy surveys. In a broader sense, this research aims to accelerate progress in the emerging field of location analytics. This research can lead to the creation of a location analytics dashboard, similar to existing dashboards for web analytics. Most web analytics dashboards measure metrics such as site visits, page views and time spent for given online properties; analogously, the location analytics dashboard would measure visits by real consumers to physical locations. Such a location analytics dashboard could be offered on a subscription basis to companies that depend on consumer behaviors in the physical world ? including retailers, hotel/resort chains, restaurants, and travel companies. Such a dashboard would address a broad range of market research opportunities, from shopper loyalty research to store sitting to marketing effectiveness measurement. Additional future impacts of the proposed effort include the ability to integrate location analytics data into Geographic Information Systems for improved public safety, municipal planning and transit systems design.